RIA: Computer Aided Critical Lift Planning

Lift planning is becoming more complex, and owner tolerance of the risk of catastrophic damage to their operating facilities is decreasing. These problems have motivated planner to explore the use of computer technology to aid the lift planning process. The objectives of this research are to: 1. Develop preliminary and detailed crane and object locating and object lift path planning algorithms in two and three dimensions respectively. 2. Explore means of applying the algorithms developed above to multiple lift planning, fleet selection, and lift dynamic control. 3. Recommend ways of extending the methods developed in this research to automated task and motion planning for construction robotics.